Arithmetic groups, universal lattices and Kazhdan's property (T)

Abstract

Award: DMS-0701639
Principal Investigator: Yehuda Shalom

The research aspects of the project revolve around two main
related themes. The first pertains to Kazhdan's property of
linear groups over arbitrary finitely generated rings. Our recent
result that under certain conditions on n and the ring R, the
group of determinant one n by n matrices over R has this property
(fixed point for any isometric action on a Hilbert space),
involves a mixture of K-theoretic and analytic tools. It promotes
fundamental questions and speculations about both the nature of
these groups, and property (T). The second topic addresses a well
known question of Zimmer from 1979, on the subgroup structure of
arithmetic groups, which has been touched so far by only one
author. The question seeks refinement of Margulis' celebrated
normal subgroup theorem, to the understanding of almost normal
subgroups, i.e., ones which intersect their conjugates in a
finite index subgroup. We plan to pursue a new approach which on
one hand leads to entirely new results and phenomena even for the
simplest arithmetic groups, and on the other to many intriguing
natural problems. The group theoretic notion of bounded
generation turns out be deeply related to both aspects of the
project, although it arises from different sources.

The mathematical notion of a group is one of the most fundamental
ones in the sciences in general and in mathematics in particular,
enabling one to rigorously treat as well as capitalize on
symmetries of various structures. A distinguished class of
groups in mathematics is formed by the arithmetic groups, which
appear and are fundamental in many mathematical areas including
geometry, number theory, algebra and even combinatorics and
computer science. One main purpose of the project is to expose
and study entirely new features of these groups, which were not
seen previously in other groups as well. Another main goal is to
make first systematic study of a wider family of groups,
generalizing the arithmetic ones, and try to bring to bear some
of the rich theory and powerful tools which have been developed
over the past half a century in the more classical setting. This
would have many potential applications in those areas where
arithmetic groups have already proved to be a fundamentally
important object and tool.